Mathematical Sciences: Mathematical Tools for Imaging Reconstruction

9400097 Grunbaum This project, which is jointly funded by the Applied Mathematics Program, the Computational Biology Program, and the Computational Mathematics Program, will consider a number of inverse problems motivated by problems in biomedical imaging, including existing modalities such as X-ray and magnetic resonance, as well as emerging ones such as diffuse tomography and the use of higher order invariants in the direct method of X-ray crystallography. Some specific areas of investigation include work on aspects of the limited angle reconstruction problem in X-ray tomography, the design of optimnized pulses for slice selection in magnetic resonance imaging, the development of nonlinear inversion algorithms in diffuse tomography, and the development of new ways of using higher order invariants within the direct method of X-ray crystallography to solve the phase problem. This project, which is jointly funded by the Applied Mathematics Program, the Computational Biology Program, and the Computational Mathematics Program, centers around inverse problems arising in biomedical imaging, including X-ray and magnetic resonance imaging. In particular, it will explore ways in which developments in mathematical physics can yield insights in diffuse tomography, that is, medical imaging using very low energy probes such as infra-red lasers. While this research is likely to be of considerable practical value in certain specific areas of medical diagnostics such as mammographies and neonatal diagnostics, the principal ideas and concepts have applicability beyond medical imaging, from areas such as crystallography to radar target estimation and semi-conductors.